REU Site: Marine Science Investigations at Bodega Marine Laboratory

Bodega Marine Laboratory (http://www.bml.ucdavis.edu/) is seeking 10 motivated undergraduate students interested in marine science careers to participate in a Summer Research-Experience-for-Undergraduate Program, supported by the National Science Foundation. Over nine weeks, students will develop confidence and independence in doing research and communicating science. Faculty and other mentors will provide one-on-one research training, from choosing a topic to writing a paper, in a friendly supportive environment. The program includes a unit on scientific ethics as an essential element of a science career path. Participants will receive a stipend, plus housing, meals and travel costs. BML is situated on a biologically rich stretch of the California coast north of San Francisco and is a part of the University of California at Davis. BML welcomes a diverse and interactive community of visiting students and scientists each summer. REU students can choose from a variety of study organisms, habitats both marine and coastal terrestrial, and diverse areas of study, for example, coastal oceanography, invasive species ecology, pollution effects on marine life, and biodiversity. Students will also develop essential career survival skills, including the code of scientific ethics. A goal of the program is to increase the success of underrepresented minorities in marine science. Applications from under-represented minority students are encouraged. More information is available at http://www.bml.ucdavis.edu/student-info/researchexp.html or by contacting Dr. Susan Williams (707-875-2211; [email]).